Measurement of Helium Isotopes and Tritium on WOCE Pacific Sections

In this project, the PI will collect water samples to measure helium isotopes and tritium on seven sections in the Pacific, contributing a tracer component as part of the World Ocean Circulation Experiment (WOCE) Hydrographic Program (WHP). The overall goal of the WHP is to determine the long-term mean thermohaline and wind-driven ocean circulation and its relation to climate change. The He-3/Tr pair provides a means of determining the age of shallow waters on time scales of months to decades.